Workstations for the Cornell Theoretical Astrophysics Group

9317302 Shapiro Obsolete workstations are to be replaced with Sun Sparc 10 and Sparc LX workstations to support the Cornell Theoretical Astrophysics Group.